NSF/BIO-UKRI/BBSRC: Enhancing 3D biostructure data deposition and processing efficiency through automated validation integration.

This project aims to improve validation of public domain 3D biostructure information to enhance the value and impact of research distributed by three Worldwide Protein Data Bank (wwPDB) data centers, including the US RCSB Protein Data Bank (RCSB PDB, rcsb.org), the Electron Microscopy Data Bank (EMDB, ebi.ac.uk/emdb/), and Protein Data Bank in Europe (PDBe, pdbe.org)). These wwPDB data centers support research and training that expands the fields of fundamental biology, biomedicine, energy sciences, biotechnology, and STEAM education by providing access to critical 3D biostructure data submitted by researchers located around the world and made publicly available for free. Validation is a key part of the data curation process and is central to ensuring the highest quality biostructure data. wwPDB Working Groups and Task Forces represent more than 100 academic and industrial volunteers who make recommendations and contribute software used to generate wwPDB Validation Reports that assess the quality and accuracy of every structure stored in the PDB archive. Before deposition, PDB data depositors can anonymously assess the quality and accuracy of their structures using an online validation server and API service. Validation reports are used in peer-review of scientific manuscripts, and they are also made publicly available to enable meaningful analyses and comparison across the entire archive. Improving wwPDB Validation will ensure that higher quality and more accurate data are in the archives. All users will benefit from wwPDB Validation Reports that are easier to read and interpret, helping to find the right PDB structures and/or 3D EM maps with which to generate hypotheses, and plan, execute, and interpret the outcomes of experiments in molecular and cellular biology. Finally, the combined basic and applied biomedical research and education communities, numbering in the many millions worldwide, will benefit from improved quality and accuracy of 3D structure information for biological macromolecules reported in peer-reviewed scientific journals, ensuring that data from wwPDB continue to be a trusted resource for research relevant to NSF's priorities in artificial intelligence and biotechnology.

This collaborative project seeks to improve the quality, accuracy, and impact of open-access data delivered from the Protein Data Bank (PDB) and the Electron Microscopy Data Bank (EMDB) archives; and strengthen scientific journal peer review of manuscripts describing newly determined 3D structures of biological macromolecules. Work planned under Specific Aim 1 will help make wwPDB structure validation software tools and the wwPDB Validation Server integral to structure determination efforts carried out in thousands of structural biology laboratories worldwide. Work planned under Specific Aim 2, in collaboration with community experts, will enhance existing wwPDB structure validation tools and the wwPDB Validation Server. Work planned under Specific Aim 3 will improve the wwPDB Validation Server to make wwPDB Validation Reports easier to read and interpret and provide 3D molecular graphics views of “issues” identified with the aid of enhanced wwPDB Validation software tools. Work carried out under Specific Aim 4 will establish a wwPDB Journal Review Server that will provide secure access to pre-publication 3D biostructure data from wwPDB Core Archives (i.e., PDB, EMDB, and BMRB) to support editors and manuscript peer reviewers at scientific journals.